Development of an Undergraduate Major in Information Technology

The goal of this project is to develop an undergraduate major in Information Technology that includes courses in telecommunications, information storage and organization, human-computer interaction, technology transfer, and computer programming. The curriculum development efforts of fifteen faculty from the Information Technology and Computer Science departments will be coordinated by the three principal investigators. Team members will participate in a workshop in summer 1993, work individually and in small groups throughout the year on construction and evaluation of course materials, and host a national workshop on undergraduate Information Technology in fall 1994. Already rich in information expertise, RIT intends to become a leader in this emerging field. The results of our curriculum development efforts will be shared through professional meetings and publications. We also hope to initiate a professional society in Information Technology so that curricular and technical developments can be disseminated nationally.